Postdoctoral Research Fellowships in Chemistry

Dr. George A. O'Doherty has been awarded a postdoctoral Fellowship in Chemistry. Dr. O'Doherty's doctoral degree was from Ohio State University under the supervision of Professor Leo Paquette. Dr. O'Doherty intends to continue his research at Stanford University with Professor Barry Trost. In his postdoctoral research Dr. O'Doherty will learn about the use of organometallic reagents in organic synthesis. This will help him towards a career goal of developing novel synthetic organic reactions based on odd electron organometallic reagents and using them for the construction of large ring compounds. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.